Applications of Interactive Minerals Exhibits in Natural History Museums

The San Diego Natural History Museum (San Diego, CA) is developing a new permanent Minerals Hall that will present San Diego geology and mineralogy to visitors through displays of outstanding mineral specimens and through interactive exhibits on the physical properties of minerals. This NSF award will support the design, construction and evaluation of the interactive exhibit components. In addition to the permanent exhibits at the San Diego Natural History Museum, an additional set of exhibits will be prototyped, tested, and installed in a new Great Lakes Exhibit at the Cranbrook Institute of Science (Bloomfield Hills, MI). The two institutions will collaborate on exhibit design and development and carry out parallel evaluations with their respective museum audiences. NSF support will be approximately 45% of the project total.